Comparative Methods in Anthropology

0132927
Borgerhoff Mulder
This research will advance the comparative method in anthropology through
development and application of new methods involving synchronic (variation
across societies) and diachronic (variation across time) change. Using
network autocorrelation matrix analyses to control for "Galton's Problem"
(the independence of adjacent societies), the project will develop methods
that examine how suites of characteristics covary using historical and
present-day ethnographic information; evaluate these methods in relation both to other synchronic methods and to newly developed approaches in comparative historical sociology; and apply these methods to test hypotheses using comparative data. The project will test a set of hypotheses
(mainly focusing on marriage and bridewealth) about cross-cultural
variability using the ethnographic literature (codings of 120 variables for
35 societies) from East Africa over the past 100 years, and then work
towards making user-friendly computer programs available on the web to
others interested in similar research endeavors. This research will advance
our knowledge of East African societies, will help re-establish comparative
cross-cultural research as a central part of anthropology, and will help
link qualitative and quantitative research traditions.